MRI: Acquisition of A 90 MHz NMR Spectrometer: Initiating a Bioinspired Undergraduate Student Achievers in Research (USTAR) Program in a Two-Year College

This award is supported by the Major Research Instrumentation and the Chemistry Instrumentation Programs. Professor Joseph Rugutt from Missouri State University - West Plains and colleagues are acquiring a 90 MHz nuclear magnetic resonance (NMR) spectrometer. In general, NMR spectroscopy is one of the most powerful tools available to chemists for the examination of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the rates of interactions between molecules in solution or in the solid state. The NMR studies improve understanding of synthetic organic/inorganic chemistry, materials chemistry and biochemistry. This instrument is an integral part of teaching as well as research performed by undergraduate students that impacts green chemistry and recyclable ionic liquids used to accelerate reaction rates. Many students use the spectrometer in a bioinspired initiative named "Undergraduate STudent Achievers in Research" (USTAR) that promotes student participation in STEM (science technology, engineering and mathematics) at the institution and at neighboring high schools in Missouri.

The award of the NMR spectrometer is aimed at enhancing research and education at all levels. This instrument acquisition especially impacts the characterization of synthesized bioassay-directed chalcones which are aromatic ketones that form the central core of important biological compounds. The syntheses incorporate nanomaterials that can be used in green chemistry and molecular modeling and for spectroscopic studies. The researchers are generating a small library of chalcones that are tested against biological targets. They are also studying ionic liquids to be used as catalysts to accelerate chemical reactions.